Hybrid Measurements of Crustal Deformation on the Guererro Coast of Mexico

9725712 Larson The boundary between the Cocos and North American plates is the locus of numerous subduction earthquakes driven by a convergence velocity of 5-7 cm/yr. Most of the plate boundary has experienced ruptures in historic time - with the exception of the Guerrero Coast. This project hopes to improve our understanding of the subduction process and its potential for rupture by conducting a series of geodetic measurements along the Guerrero Coast. The P.I. and collaborators will combine GPS, levelling, and absolute gravity data to provide optimal information on both vertical and horizontal crustal deformation. The geodetic data, along with seismic data, will be used to model the Guerrero dislocation and its defining characteristics. The scientific team includes active collaboration of the National Autonomous University of Mexico (UNAM), NOAA, and UNAVCO. ***